Grid Summer Workshop; South Padre Island, TX

This award provides support for participants in the Grid Summer Workshop to be hosted by the University of Texas at Brownsville on South Padre Island (TX) from June 21 to June 25, 2004. The goal of this summer school is to provide intensive immersion in Grid computing and its application in scientific data analysis. The Workshop is open to graduate and undergraduate students in Computer Science, Physics, and Mathematics.